Undergraduate Research in Development Regulation

This award provides support to continue a 10-week summer research experience for nine undergraduates from Carleton College and other regional colleges and universities. Pre-participation reading requirements will provide students with an adequate foundation for meaningful scientific investigation. During the summer, students will work in a one-to-one relationship with a research supervisor in the laboratory. Weekly seminars will provide students with the opportunity to discuss research plans and results as well as to delve into primary scientific articles. To further focus and unify the student participants, a theme of development regulation has been selected. Projects will include investigations of: the mechanisms of action and the chemical characteristics of apossibly-steroid pheromone produced by Oedogonium, regulation of floral development in pea, structure- function relationships in the repressor protein of bacteriophage P1, structure and function of the glucocorticoid receptor in rat liver, development of synaptic connections in Xenopus, variation of sex expression in composites, role of song communication in coordination of parental care in cardinals, and effect of gregarine parasites on population biology of capitellid polychaetes. Students will present their results during a fall poster symposium. Opportunities to complete research and writing during winter break will be available.